Postdoctoral Research Fellowships in Chemistry

Dr. Hope A. Michelsen has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Michelsen's doctroal degree was from Stanford with Professor Richard Zare. She intends to continue research at Harvard with Professor James Anderson. Dr. Michelsen has completed research in the dynamics of dissociativie chemisorption of hydrogen on copper surfaces. She wishes to focus her career on the study of heterogeneous processes in the atmosphere. Working with Professor Anderson will give her the opportunity to learn about computer modelling of the chemistry of the stratosphere and become involved in field measurements. This will be an important step towards developing her career in environmental chemistry. %%% The Postdoctoral Fellowships in Chemisity Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.